NSF FF: Planning: Ethical AI Game Creation Toolbox for ADHD Youth

This FINDERS Foundry award supports the co-creation of an AI-enhanced toolbox for the development of digital games for teachers and their students with ADHD and other learning differences. Many students who think and learn in different ways have fewer chances to create games or use design tools. This project will strengthen participation in STEM by giving more students access to game design tools that are accessible, ethical, and supportive of student well‑being. Families, educators, and students will co‑design the prototype to make sure the experience encourages creativity, reflection, and confidence. The tools will help students express ideas, try new designs, and see themselves as creators. By making creative technology more inclusive, the project hopes to open new doors for youth and help them build STEM and AI skills that support long‑term success.

This FINDERS Foundry award aims to decrease barriers for students with learning differences to participate in STEM activities. The interdisciplinary team will design an AI‑enabled game‑creation toolbox that incorporates ethical AI frameworks and inclusive technology practices. The project will develop prototype workflows that embed reflective AI supports and operationalize models such that prioritizes flexible learning environments and children's well being. Technical efforts will focus on aligning game‑creation tools with responsible AI principles, identifying accessibility considerations, and integrating scaffolds that promote student agency and ethical engagement. Usability testing with teachers and families will generate qualitative and quantitative data on tool performance and instructional fit. Outputs will include prototype components, design‑evaluation insights, ethical reasoning, and learner autonomy. The work supports research AI literacy, creativity, and youth well‑being.